Research in Experimental Nuclear Physics

9316221 Haeberli The University of Wisconsin experimental nuclear physics group will carried out research in the structure of few-nucleon systems (including the quark substructure), meson production and meson exchange current processes, fundamental weak interactions (tests of the standard model of electroweak interactions), and symmetry tests. An in-house tandem van de Graaff accelerator with polarized beam capability, as well as polarized targets, will be used to carry out the in-house research program and develop equipment needed for user mode experiments. Precision measurement techniques are central to the in-house few-nucleon studies. User experiments will be carried out at IUCF, Bates, NIKHEF, HERA, and Louvain la Neuve. Polarized beam and target techniques are central to all research activities. Optical traps for polarized radioactive atoms will be developed and used in some of the weak interaction experiments. Atomic beam and laser pumped polarized targets and related equipment will be developed for the medium energy program, which is based at the IUCF Cooler facility, and the electron accelerators at Bates, NIKHEF, and HERA. ***